Fast Microvalves Using a New Thermal Actuation Principle andNew Silicon MEMS Techniques

9521204 Kovacs The proposal is focused on the problem of fluid flow in microvalve MEMs. The research uses rapid deep RIE (DRIE) of silicon combined with silicon fusion bonding (SFB) to offer unique mechanical structures with particular advantages to the field of microfluidics. These novel techniques can be combined with a monomorph thermal actuator to fabricate novel microvalve structures which are able to control fluids in MEMs. The application of these MEMs is in the area of high-performance liquid chromatography systems. ***